A CCD Based Undergraduate Astronomy Laboratory

Modern equipment will substantially enhance the nature of undergraduate Astronomy observing labs at the introductory level. It is absolutely vital to update antiquated equipment so that Astronomy is not perceived as an old, drab science without innovation. The project centers on student use of modern light detectors (CCDs) and image processing techniques which closely match what the professional does. Much of the thrill, motivation and excitement of science comes from discovery. A variety of observational exercises, using this modern equipment, are oriented towards projects which emphasize the discovery aspects of Astronomy. To meet these objectives, a wide field imaging system is used so that a single CCD exposure images 1-4 square degrees of sky. With similar systems, students are able to image a wide variety of astronomical targets. These new labs represent an exciting addition to the traditional textbook curriculum. Such labs should increase the scientific and computer literacy of undergraduate and allow them to understand more effectively the coupling between instrumentation and computers, and motivate them to pursue a career in science by emphasizing the process of discovery and the relationship between data and scientific model making.